Analysis of Neural Networks for Adaptive Pattern Recognition

Dr. Carpenter and two graduate students will further develop and study her biologically motivated ART3 model of adaptive pattern recognition. The funded work will focus on computational analysis of these self-organizing architectures, development of network architectures for new parallel computer designs, and construction of hierarchies of neural-network modules (including her earlier ART and ART2 "adaptive resonance theory" networks).